Study of Ultra High Energy Phenomena Using Tevatron Colliderand Cosmic Rays (Physics)

The work is in the fields of both elementary particle physics, (EPP) and astrophysics (AP), and the intersection of both fields as well. The EPP work measures the elastic scattering and total cross sections for proton-antiproton interactions at 2 TeV at the Fermilab Collider (the highest energy accelerator in the world). There are two cosmic ray projects, one at Los Alamos which searches for point sources of cosmic rays with energies greater than 30 TeV and one project to study neutrino astronomy. The EPP field studies the basic building blocks of matter (e.g., electrons, positrons, quarks, and weak bosons) at very high energies. The experiments use accelerators (colliders) which provide the highest energy particles made in the laboratory. The data is collected and analyzed using highly complex and sophisticated apparatus and techniques. The AP field studies the origins and structure of the universe by measuring radiation impinging on the earth from outer space. The measurement of this radiation gives information about AP and EPP.